Conference Proposal: Symmetries in Mathematics and Physics

Abstract

Principal Investigator: Etingof, Pavel I.
Proposal Number: DMS - 0750598
Institution: Massachusetts Institute of Technology
Title: Conference Proposal: Symmetries in Mathematics and Physics

The one-week conference "Symmetries in Mathematics and Physics", which is being organized to honor the 65th birthday of Prof. Victor G. Kac (MIT), intends to present some of the most important and recent developments in Mathematics and Physics through the concept of "symmetry", which encompasses the major algebraic ideas involved in the description of physical problems.

For instance, conservation (of energy, momentum, charge) laws are often obtained as consequences of the invariance of some physical system under suitable continuous symmetries; the representation theory of Lie superalgebras describes the concept of supersymmetry and supersymmetric objects, such as fundamental particles and interactions. The quantization of physical systems can be interpreted in terms of quantization of the corresponding algebraic structures and representations.

Scientists who studied and developed the central ideas of the above theories are among the invited speakers.